Development and Testing of an Advanced Ocean Circulation Model Based on Spectral Elements

A numerical model of the ocean is being developed. It will include a spectral element description in the horizontal, and a layered coordinate in the vertical. These refinements will provide an alternative to current ocean models which will increase computational efficiency, lower memory and storage requirements, and provide the potential for variable grid and parallel architecture developments. The model will be exercised on several critical physical processes in the ocean including the deep circulation, interactions with topography, and mechanisms controlling potential vorticity in ocean gyres. Model output will be contrasted with that from the ocean community modeling effort. The work is a contribution to the World Ocean Circulation Experiment (WOCE).